Optimal recoding of binary numbers for cryptographic operations

0429523
Rajendra S. Katti
North Dakota State University Fargo

Algorithms to recode a binary number into a signed binary number (such numbers have
digits {0,1,-1}) will be developed by the proposed work. The main advantage of the
algorithms developed is that they examine the binary numbers from left-to-right. The
algorithms must result in minimal joint weight to reduce the number of operations in the
multi-exponentiation operation used in cryptography. Developing such algorithms for
more than one integer has never been done before. In fact this was considered as a hard
problem in the literature. The PI developed a left-to-right recoding algorithm for two
integers that resulted in minimal joint weight. This resulted in a solution to a problem that
had been an open problem since 2001. Extending this to the general case of N integers
will be considered. This extension is no trivial task because the only known solution to
minimal joint weight recoding of N integers examines the integers from right-to-left.
Examining the integers from left-to-right makes the algorithm compatible with Shamir.s
left-to-right multi-exponentiation method. This leads to less memory requirement for
multi-exponentiation, which is very important in memory-constrained systems like smart
cards. Other extensions like recoding for sliding window methods of multi-
exponentiation will also be considered. In this case the algorithms developed, other than
being left-to-right will also maximize the length of zeros between windows. This again
results in decreasing memory requirement while increasing the speed of multi-
exponentiation. Recoding with other digit sets like {0,1,-1,3,-3} will also be considered.
Recodings developed by the proposed project are useful in cases where group inversion is
very fast. Such groups include the elliptic curve group, groups of rational divisor classes
of hyperelliptic curves, trace zero varieties and XTR subgroups.